Direct Measurement of Carrier Capture and Escape Rates in Quantum Well Gain Media by Four-Wave Mixing

9903127
Vahala

The proposal describes work to investigate the effect of electronics state energy of relaxation, the variation of capture and escape rates with steady state quantum well carrier density, the impact of barrier height and width on transport rate, and the temperature dependence of the capture/escape processes. The proposed studies will utilize the four-wave mixing measurement techniques that have been pioneered by the PI in pass few years. The technique is capable of measuring frequencies ranging from a few GHz to in excess of 100 GHz. For this work the PI will collaborate with Lucent Technologies to obtain samples used in the experiment and analyzing the data for its impact on the laser performance.